Nondipole and Quantum Confinement Effects in Atomic Spectra

This project aims at advancing the understanding of nondipole dipole (E1)-quadrupole (E2) interference effects in atomic photoionization, at advancing the understanding of quantum confined structures, and at fostering integration of research and education at the University of North Alabama. Specifically:

To learn about the strength of E1-E2 effects in regions of gigantic quadrupole autoionizing resonances in atoms developing nd and/or nf orbital collapse (essentially all transition and rare-earth atoms).

To establish trends in the behavior of quadrupole Rydberg structures interacting with gigantic quadrupole autoionizing resonances of which little or nothing is known to date.

To learn about E1-E2 effects within dipole autoionizing minima in atoms with large Fano profile parameter q. nance maxima, as in Tl, thus possibly resulting in strong E1-E2 effects far off the resonance maxima.

To develop a quantum defect theory of confined atomic systems under conditions of incomplete short-range confining screening. New unique classes of interchannel phenomena arising due to crossings between Rydberg states and cavity related resonances are expected to be revealed.

To work out the foundations of spectroscopy of atoms A trapped under conditions of incomplete charged quantum confinement.

Hartree-Fock approximations and the many-body random phase approximation with exchange (RPAE) will be employed in the study. UNA undergraduate students will actively be engage in research.